Sulfur-Nitrogen Reagents in Asymmetric Synthesis

The focus of this research is the rational development of chiral nonracemic sulfer-nitrogen reagents including N-sulfinylaziridines, primary sulfonamides and N-fluorosulfonimides. New N-sulfinylaziridines will be used in the enantioselective preparation of 2H-azirines and 2H-azirine 2-carboxylic acids, both useful intermediates for the preparation of bioactive nitrogen-containing compounds. Other research will focus on the use of achiral N-fluorosulfonimides as agents for site-specific fluorination. With this renewal award, the Synthetic Organic Program is supporting the research of Dr. Franklin A. Davis of the Department of Chemistry at Temple University. Professor Davis will focus his work on the use of sulfur-nitrogen reagents for the preparation of enantiomerically pure compounds. The synthesis of enantiomerically pure compounds is an important objective since biological activity often depends critically on the molecular shape and absolute stereochemistry of molecules.